I/UCRC Planning Grant: University of Hawaii Partnership with the NSF I/UCRC for Telecommunication Circuits and Systems at Arizona State University

This award supports a planning grant to establish a University of Hawaii partnership with the Industry/University Cooperative Research Center (I/UCRC) for Telecommunications Circuits and Systems at Arizona State University. The Hawaii Center for Communications will provide the capabilities, expertise, and research facilities for doing the research and will also be the contracting arm for the University of Hawaii.

The vision for the next generation wireless communication technology calls for fully integrated, low cost, and expanded broadband services, with seamless hand-off between heterogeneous networks, full mobility, and minimum latency. These are clearly challenging requirements that can only be met through technological breakthroughs and innovative contributions in multidisciplinary research efforts that may span across the entire communication network layers. The assembled team of researchers from the collaborating groups represents broad background, breadth, and significant research expertise that will help the joint center effectively participate in advancing the telecommunications technology.